Point Defects in Semiconductors using Optical Detection of Magnetic Resonance

The program is an experimental study of scientifically and technologically important point defects in elemental and compound semiconductors using optical detection of magnetic resonance (ODMR) and optical detection of electron-nuclear double resonance (ODENDOR). The theory of such defects in semiconductors, the "deep level" problem, has made exciting new advances recently. The investigation outlined in this program is directed toward determining the identification and microscopic lattice configuration of the defects, and mapping out the electronic and vibronic structure in their ground and excited states -- information vital to guide and confront theory. The power and potential of ODMR and ODENDOR for such studies has been demonstrated dramatically by experiments conducted under the present grant. In the proposed renewal program, new ODMR and ENDOR experiments are outlined for the study of the intrinsic lattice defects (vacancies, interstitials, Frenkel pairs, antisites, etc.) as well as some of the more important chemical impurities and simple complexes resulting from their interactions. A new direction to our studies will be afforded by the instrumentation of time-resolved ODMR for the study of the poorly understood dynamics of luminescence and energy transfer processes in these materials.